NSF-BSF: Synthetic Dissection of Signal-to-Transcription Dynamics

Communication systems are required to build tissues and organs during embryonic development and to maintain the health of these tissues throughout life. This project focuses on the Notch regulatory circuit, one of the most fundamental communication systems that cells use to coordinate development. The results will improve our knowledge of how regulatory circuits such as Notch function, and will inform the design of synthetic signal transduction circuits used in biotechnology and biomedical applications. The project brings together researchers in the United States and Israel and integrates biology, physics, mathematics, and engineering. It will provide sustained research training for undergraduate students, graduate students, postdoctoral researchers, and high school students through mentored research experiences,

The project exploits the architectural simplicity of the Notch signaling pathway to establish a quantitative framework linking signaling dynamics, regulatory DNA architecture, and transcriptional bursting. Unlike most signaling pathways, which relay information through multiple intermediate steps, the Notch pathway links communication between neighboring cells directly to gene expression, making it an ideal system for rigorous experimental testing. The investigators will combine synthetic biology, quantitative live-cell imaging, statistical inference, and mathematical modeling to determine how regulatory DNA architecture and Notch signaling dynamics control when genes switch between transcriptionally active and inactive states. The first objective will use synthetic regulatory DNA sequences with precisely defined numbers, affinities, and arrangements of Notch binding sites to determine how regulatory DNA architecture controls the duration, amplitude, and frequency of transcriptional bursts in developing fruit fly embryos. The second objective will develop new live-imaging methods that simultaneously measure nuclear Notch signaling dynamics and transcriptional bursting within the same cells, allowing the investigators to determine whether gene expression depends only on instantaneous signaling levels or also on signaling history and chromatin-mediated memory. The third objective will test these quantitative principles in cultured mammalian cells using synthetic reporters integrated at defined genomic locations, where signaling strength, timing, and chromatin state can be independently controlled. Throughout the project, theoretical predictions will guide experimental design, and experimental results will refine the quantitative framework. Together, these studies will establish a predictive, experimentally validated framework linking signaling dynamics, regulatory DNA architecture, chromatin state, and transcriptional bursting. The resulting quantitative principles will advance fundamental understanding of gene regulation and provide a foundation for understanding and ultimately engineering dynamic gene regulation in multicellular organisms.